Collaborative Research: Comprehensive Analysis of Seismic Processes in a Deep South African Mine

Many fundamental questions in earthquake physics remain unresolved, largely because of
difficulties in obtaining high-quality, near-source recordings of small earthquakes and
deriving reliable source parameters. The overarching goal of this project is to provide an
improved understanding of earthquake source processes for a wide magnitude range
(approximately -4 to 4). We are performing detailed seismological investigations of
source properties that characterize several distinct classes of seismic events (earthquakes,
rockbursts, and blasts) in a 3.6 km deep South African mine. We will also conduct a short
field campaign to record seismic events at the extremes of the magnitude range and in
close proximity to fault structures. Full source tensor inversions, second moment
analysis, and spectral methods will be used to determine comprehensive sets of source
properties including scalar potencies/moments, focal mechanisms, corner frequencies,
strain/stress drops, radiated energies, rupture velocities, and source time functions.
Special effort will be devoted to detecting isotropic components of faulting. Theoretical
calculations of expected radiation from different event types will help in the
interpretation of results.
Applying the above analysis to the small-magnitude, near source seismic data will allow
us to obtain constraints on many aspects of earthquake physics including nucleation
processes, the prevalence of isotropic components of seismic radiation, changes in the
physics of rupture with event magnitude or with proximity to geologic and mining
structures, and source parameter differences between earthquakes, explosions, and other
seismic sources. The high-resolution results on seismic source properties and scaling
relations will significantly impact the earthquake physics and rock mechanics
communities by helping to resolve long-term controversies on earthquake nucleation and
rupture processes, scaling of laboratory results to natural faults, and earthquake energy
budgets, among others. In addition, the findings on spatially dependent seismic properties
will be useful for decision-making concerning when and where to suspend mining
activities to enhance underground safety